Conference on Topology and Geometry of Knots

A Conference on Topology and Geometry of Knots will be held at Oklahoma State University on March 20-21, 2009. Twelve speakers, including four established researchers, will give presentations related to colored Jones polynomial, sutured Floer homology, knot Floer homology, Heegaard Floer homology, and Khovanov homology and applications of topological quantum field theory to low dimensional topology.

The main goal of the conference is to explore deep connections among various geometric and topological constructions from mathematics and physics. The participants will be exposed to a wide range of methods and results from different fields of investigation. The conference also will provide early career researchers the opportunity to interact with senior mathematicians.